2008Bridge to the Doctorate at Colorado State University (Cohort 3)

Colorado State University Louis Stokes Alliances for Minority Participating (CO-AMP) will build on the successes of the existing Bridge to the Doctorate (BD)program to support effective academic, mentoring and social networks among underrepresented minority (URM) graduate students in science, technology, engineering and mathematics (STEM) disciplines.

The Graduate Center for Diversity and Access at Colorado State University will offer opportunities through the entire professional development journey, from matriculation to STEM doctoral completion and successful job placement and re-affiliation with the ystem as alumni.

The comprehensive program will recruit and matriculate LSAMP students into PhD STEM programs with an emphasis on recruitment from national LSAMP programs; ensure BD student retention and interest in the professoriate by creating a BD network that builds social and academic support systems; provide student-centered activities and mentoring programs. The programs will be infused with content regarding the importance of URM presence in faculties that will include mentoring workshops to faculty advisors as well as support for successful placement of BD students in the workforce with an emphasis on appointments within the professoriate.

The program include a rigorous evaluation to collect formative and summative data for program improvements and comprehensive analyses. Findings will be disseminated at regional, state and national diversity conferences and in related journals.